Conference Proposal: The Radio Synchrotron Background

Astronomers have studied the radio waves that come to us from the universe since the 1930s. One
fascinating phenomenon that has been measured in radio light is a faint, diffuse glow which covers the
entire sky. This glow is best described as the "Radio Synchrotron Background", where the term
"synchrotron" refers to particles making radio waves when they spin around magnetic fields. Interest in the "Radio
Synchrotron Background" has been rekindled recently because of new measurements. This radio glow
presents a mystery because it is difficult to explain how it came to be there with known astrophysical
processes. It represents one of the mysteries of contemporary astrophysics. While there have been
many publications in the literature on this topic, there has not yet been a scientific workshop.

We will hold the first scientific workshop on the radio synchrotron background, which will bring
together scientists working in these overlapping fields to discuss the radio synchrotron background in
person for the first time. There are implications for many areas of active research in contemporary
astrophysics. The workshop will inspire new collaborations and new lines of inquiry, and may spur
future meetings on the topic. This project funds travel support toward allowing scientists to attend the
workshop as well as for a talk for the public and for a report for the scientific community on the
outcome of the meeting. The workshop will be held at the University of Richmond.

The Radio Synchrotron Background is a newly re-appreciated astrophysical phenomenon which has been
a subject of great interest to many in the community. Combining the ARCADE 2 balloon-based absolute
spectrum data from 3-90 GHz with absolutely calibrated single-dish diffuse radio surveys at lower
frequencies reveals a radio synchrotron excess that is several times brighter than was expected by
many. The origin of the radio synchrotron background is one of the mysteries of contemporary
astrophysics. It is difficult to produce the observed level of surface brightness by known processes
without violating constraints.

The existence of the radio background at the observed levels presents profound challenges for our
current understanding of radio emission in the Galaxy and the universe. As demonstrated in many
recent publications, there are implications for many areas of astrophysics, including cosmic ray
propagation, galactic and extragalactic magnetic fields, the radio to far-infrared correlation, radio source
counts, X-ray source counts, quasar luminosity functions, dark matter annihilation, polarization of
foregrounds in microwave background maps, population III stars, mergers of clusters, and many more.

The workshop will feature plenary sessions made up of multiple presentations by attendees
interspersed with and question and discussion periods centered around different topics that study of
the radio synchrotron background touches. The visual component of individual presentations, in the
form of PDF, PowerPoint, or similar files will be made available on the Web. Additionally, a report will
be prepared for the scientific community on the outcome of the meeting. The priorities identified in the
report will be determined by consensus of the meeting attendees as synthesized by the organizing
committee. Finally, new collaborations and working relationships will be established.